Workshop: Source-Channel Coding Research During the Next Decade (October 4-5, 1999), San Diego, California

This workshop is intended to bring together a group of researchers to discuss and recommend future directions in the field of source-channel coding.
Specifically, the goals of the workshop are:
Provide a contextual basis for understanding the array of applications in which source-channel coding can play a central role;
Assess the potential impact of source-channel coding technology in those applications;
Identify and characterize the major research issues associated with the design, development, and deployment of source-channel coding technology;
Develop a conceptual framework for future crosscutting research activities in this inherently interdisciplinary area.